Studies of Sequence Directed Axial Curvature in DNA

Recent results from Dr. Harrington's and other laboratories have suggested that two distinct types of DNA curvature may be important in specific DNA-protein interactions: sequence directed fixed or intrinsic axial curvature which determines an overall space writhe; and anisotropic axial flexibility associated with specific sequence elements. Dr. Harrington proposes a line of investigations designed to clarify these ideas in terms of specific DNA conformations and structures. These studies will include: (1) systematic studies of putative sites of high anisotropic flexibility using osmium tetroxide adducts and other chemical probes sensitive to open or distorted DNA structures: (2) development of appropriate scanning probe microscopy technologies to visualize these structural features directly; (3) use of other biophysical techniques such as polyacrylamide gel retardation, ring closure (cyclization), fluorescence energy transfer and electrooptical methods to characterize and quantitate DNA curvature; and (4) systematic searches of DNA sequence databases to uncover the biological roles of curving or bending DNA.